Magnetostratigraphy and Chronostratigraphic Facies Evolution, Little Bahama Bank

Shallow-water carbonate platforms contain a rich-record of changing environments related to globally synchronous external controls including sea level and changes in circulation. However, we have until now been unable to link the timing of these controlling events with actual platform rock sequences due to early diagenetic changes. Furthermore, the correlation and influence of platform-derived sediment with the proximal deep- water areas was also not possible. Many of these limitations for efficiently extracting information from the platforms have now been obviated by the successful application of magnetostratigraphic dating to the shallow-water carbonates. This research will develop a chronostratigraphic facies evolution of a carbonate platform, will assess the influence of eustatic sea level changes and will correlate with surrounding deep-water environments. Once completed, the results will enable a refined chronostratigraphic platform-periplatform model, linking the entire depositional system.